RAPID: The Snowmastodon Project

The recent discovery on Oct. 14, 2010, of exceptionally preserved plant and large mammal fossils at
Zeigler Reservoir near Snowmass Village, Colorado provides a brief opportunity to study an amazingly
well-preserved, sequence of high-elevation Ice Age ecosystems. In 18 days (Oct. 29 to Nov. 17, 2010),
the Denver Museum of Nature & Science (DMNS) excavated more than 600 bones comprising parts of 8-
10 American mastodons, 4 Columbian mammoths, 4 Ice Age bison, 2 deer, 1 Jefferson’s ground sloth
(the first record in Colorado and the highest altitude record in North America), multiple Tiger
salamanders, and exceptionally preserved plant, insect and aquatic invertebrate fossils. As a whole, the
site represents the first relatively complete sequence of lacustrine Pleistocene ecosystems at high
elevation in the Rocky Mountains. A number of key research questions and opportunities have emerged:
1) What does this site tell us about high elevation Pleistocene climate and biota in the Ice Age Rockies?
2) What is the geochronology of the site? 3) What is the detailed history of lake in-filling? 4) What were
the life histories of the site’s mammoths and mastodons? 5) Given the large number of specimens, can we
undertake metapopulation analyses of the bison, mammoth, and mastodon? And 6) what is the relevance
of this Rocky Mountain climate and biotic record to present-day issues of climate change?
To answer these over-arching questions and other more specific questions, we have assembled a team of
32 scientists from 15 institutions organized into six groups to undertake a comprehensive multidisciplinary
study of the Ziegler Reservoir fossil lake. These groups are: 1) regional and local geology; 2)
stratigraphy; 3) geochronology; 4) fossil vertebrates; 5) fossil plants; and 6) fossil invertebrates. Using
this approach, we are designing a plan to: 1) excavate the remaining fossil resources from the dam site in
May-June, 2011, before the site is buried by planned dam construction in July-September; 2) implement a
comprehensive scientific research plan to study and understand this site; 3) preserve and conserve the
fossils from the site; and 4) to use the results of this discovery provide world-class educational
opportunities to local, regional, national, and international audiences. DMNS is planning an
comprehensive media and documentary plan for the 2011 excavation and DMNS educators will return to
the Roaring Fork Valley in Spring 2011 to provide free education programs for K-12 students in all of the
Roaring Fork Valley schools, including in-school assembly programs, distance learning programs, teacher
professional development programs, and early childhood education resources available on
www.dmns.org. This grant will partially fund the fieldwork portion of 2011 activities.